Mathematical Sciences: NSF Young Investigator

This research, supported by the National Science Foundation Young Investigator award, will continue Mrowka's program to use gauge theory to investigate the differential topology of 4- manifolds. In particular, he will work toward a better understanding of Donaldson's invariants and what they tell about4-manifolds. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader.